The Fluid Geochemistry of Ridge Subduction-Chile Triple Junction (ODP Leg 141)

This award will support the final year of a project to establish the fluid and mineral mechanisms, fluid circulation pathways and time scales responsible for the formation of authigenic minerals formed at the Chile Triple Junction. Hydrothermal pulses from the buried ridge system have produced a series of mineral facies, which will be analyzed with Li, B and O isotopes in addition to a range of other analyses already accomplished. A hydrogeochemical model will be constructed using local tectonic and kinematic constraints, in order to estimate fluid and geochemical fluxes associated with ridge subduction.